CAREER: Dissecting and guiding neural population mechanisms of learning

Learning is central to both human life and artificial intelligence. People learn to move, communicate, reason, and recover skills after injury, yet how the brain achieves this learning remains poorly understood. This project studies how neurons in the brain change their coordinated firing activity during learning and how that knowledge can be used to guide learning to proceed faster and more effectively. The work focuses on the primary motor cortex, a brain region involved in the control and learning of movement. The project will investigate how neural circuits change over hours versus days of learning. By revealing the mechanisms that support learning in the brain, this project may inform new strategies for neurorehabilitation after injury or disease, improve methods for guided skill training, and inspire more robust, efficient, and interpretable artificial intelligence systems that learn more like biological brains. The project also advances education and workforce development by integrating research with modernized university training, publicly available online mini-courses, classroom outreach for middle and high school students, and public-facing science communication.

The project will combine computational modeling with experimental data from monkeys performing brain computer interface learning tasks that probe multiple timescales of learning. It will test the hypothesis that rapid learning primarily reflects changes in the inputs that drive a population of neurons, whereas slower but more flexible learning reflects changes in local recurrent circuitry within that population. First, the project will develop recurrent neural network models to determine how these candidate circuit-level mechanisms can reshape neural population activity and behavior. Second, the project will develop machine learning methods to infer which learning mechanisms best explain recorded neural activity in primary motor cortex during short-term and multi-day learning. Third, the project will use these models to design individualized training curricula and neural interfacing protocols intended to accelerate learning by guiding neural activity along more effective paths. Together, these activities will establish a framework for identifying circuit-level mechanisms of learning, testing how those mechanisms constrain or enable behavioral change, and using that knowledge to guide learning in both biological and engineered systems.